Research Needs Workshop: Building Systems Integration for Performance and Environmental Quality

9708399 Loftness There is a major need for advancing the scientific understanding, technological innovation, and design/engineering standards for integrating building systems to improve overall building performance and environmental quality; such concerns exist equally for new construction and for retrofitting of existing buildings. Advances in scientific and engineering understanding will focus on the performance of integrated systems - thermal, visual, acoustic, spatial, and air quality, as well as long term integrity. Advances in technological innovation would focus on innovation in structure, enclosure, thermal conditioning, ventilation, lighting, power and networking, and interior space definition; the anticipated advances will be present both in individual products and in integrated systems. Advances in practice would focus on the building delivery process, incorporating issues such as codes, design standards, education, quality assurance procedures, and prototyping of flexibly integrated systems to ensure organizational flexibility, technological adaptability, and long term environmental quality. The strategic research needs may vary significantly between advancing building systems, integration for performance, indoor environmental quality, global resource utilization, and the competitiveness of the United States building/construction industry. This NSF Research Needs workshop will be held in 1997, assembling key researchers, practitioners, government and industry participants to map out state-of-the-art conditions and to identify research needs and priorities. The workshop report will be distributed to institutions, organizations, and individual researchers active in this research area: the report will also be available electronically over the World Wide Web.